Pade approximation, noise filtering, and quantum state transfer

Padé approximations have many applications in natural sciences and mathematics where they are used to approximate values of special functions. This project will develop the machinery and techniques so they can be used for gravitational wave detection, nuclear magnetic resonance spectroscopy as applied to nuclear waste, brain/breast cancer detection, and oil detection. Another aspect of the project is to study all these objects in relation to problems of quantum information and quantum computers. The history of Padé approximants goes back to Charles Hermite’s proof that Euler's number is transcendental. Henri Padé, a doctoral student of Hermite, systematically extended these techniques. A Padé approximant is a rational function with the degrees of numerator and denominator n and m, respectively, and the power series expansion about a specific point agreeing with the power series expansion of the given function up to the (n+m)-th term. One of many attractive features of Padé approximants is their fast convergence and the phenomenon of global convergence. There are some pitfalls in the behavior of Padé approximants and many interesting open problems, which will be studied in this project. The PI plans to train graduate students and disseminate results publicly through publications, arXiv preprints, and at conferences.

The first part of primary goals of this project includes developing the mathematical foundation for a denoising scheme based on Padé approximants, which was recently proposed by physicists Daniel Bessis and Luca Perotti. There are many noise filtering methods available, but most of the classical ones fail when the signal-to-noise ratio approaches 1. The Bessis-Perotti method has been shown to be computationally effective in several cases. The underlying mathematical problem consists in the analysis of behavior of poles of Padé approximants under rational perturbations. The PI proved some convergence results for Padé approximants of rational perturbations of Markov functions, which will be further extended and adapted to the denoising scheme. Orthogonal polynomials and Jacobi matrices are intimately related to Padé approximants, and are widely used tools in their own rights. The PI intends to explore and to use some recent asymptotic formulas for nonclassical orthogonal polynomials on the unit circle of Brian Simanek and the PI in relation to the noise filtering method. The second part of primary goals includes further investigations of the relation between quantum state transfers in 1D chains and in spin configurations on graphs, which was recently proposed by Gerald Dunne, Gamal Mograby, Sasha Teplyaev, and the PI. The PI also plans to use the theory of Jacobi matrices and orthogonal polynomials to find a systematic approach to designing 1D chains with non-nearest neighbor interactions and to adapt it to the case of some graphs.